Analysis and Computation of Electromagnetic Transport in Composite Materials

The interaction of an electromagnetic field with an
inhomogeneous material is a pervasive problem arising in a broad
array of applications. Often a wave interacts with a random or
structured medium, and one is interested in the effective behavior
as the wave propagates through or is localized by the medium.
Moreover, systems as varied as photonic crystals and band gap
structures, random resistor netorks, sea ice and other porous
media, and electrorheological fluids exhibit critical behavior in
their effective electromagnetic properties as some parameter is
varied. The investigators conduct fundamental, mathematical
studies of the interaction of electromagnetic fields with such
composites, in conjunction with state of the art numerical
experiments on model problems. In particular, a method based on
spectral theory and analytic continuation has been developed to
obtain rigorous bounds on the effective complex permittivity in
the quasistatic limit. More recently, this approach has led to
the finding that the effective transport properties of
two-component media share the same analytic properties as the
order parameters in statistical mechanics, such as the
magnetization in an Ising model. These powerful relations have
only been exploited in the static case and raise many important
questions, yet the ideas of statistical mechanics form a natural
framework for analyzing critical behavior of wave phenomena as
well. Much of the analytic structure displayed in the static case
carries over to the Helmholtz equation in a composite. This
observation, as well as its implications for using statistical
mechanics in this context, is investigated analytically and
numerically. These investigations may yield fundamental advances
in the mathematics, computation, and physics of electromagnetic
fields and their interactions with composite systems. Graduate
and undergraduate students are involved in key projects combining
mathematical and computational analysis.

In a broad range of problems across many disciplines,
electromagnetic fields such as light, radar, or microwaves
interact with inhomogeneous materials such as semiconductors,
oil-filled rocks, bone or heart tissue, radar absorbing coatings,
or shipping containers. Examples arise in physics, materials
science, electrical and bio-engineering, chemistry, biology,
geophysics, and astrophysics, and are central to communications
and medical technologies. The investigators conduct fundamental
mathematical studies of electromagnetic fields interacting with
composite media, in conjunction with state of the art numerical
experiments on model problems. In many important examples, the
effective electromagnetic properties depend critically on some
parameter in the system. For example, whether or not a wave can
propagate through some types of structured media, called photonic
crystals, depends critically on the ratio of the wavelength to the
scale of the structure or other properties of the medium.
Recently it was found that the mathematics underlying electrical
transport in composites is almost identical to the mathematics
underlying statistical mechanics. Statistical mechanics deals
with phase transitions such as the freezing of water at the
critical temperature of zero degrees Centigrade, and provides a
natural framework for posing key questions about these systems.
The investigators develop and apply the ideas of statistical
mechanics to electromagnetic systems using mathematical analysis
and sophisticated computations. They seek fundamental new
insights, as well as novel ways of understanding and predicting
how electromagnetic fields interact with composites. The project
actively involves graduate and undergraduate students engaged in
analytical and computational projects that are central to the
overall goals. Results, particularly concerning critical
properties, could potentially affect a broad range of application
areas, including media structured on the nanometer scale.